Mosaic Analysis of Floral Homeotic Genes in Arabidopsis

Plant morphogenesis relies on the continued proliferation and differentiation of cells derived from the shoot apical meristem. In response to a variety of signals, cells in the shoot apical meristem convert from vegetative to floral growth. This switch is accompanied by a number of morphological and biochemical changes, resulting in a change in the pattern of organ initiation and the type of organ that is formed. In addition, intercellular signals appear to be required for establishing the floral pattern. Dr. Irish proposes to investigate these processes in Arabidopsis by characterizing some of the key genes required for establishing both the floral pattern of organogenesis and specific tissue identities. She will take two approaches to address these problems. By using both molecular and genetic techniques, she hopes to clarify the pathway(s) involved in establishing the floral pattern by defining new genes required to specify the first steps in floral morphogenesis. In addition she proposes clonal analysis experiments aimed at testing the cellular autonomy of previously characterized mutations, which allow her to define the gene products involved in cell-cell signalling mechanisms required for the development of the floral pattern.